Physical Mechanism of Energy Transduction in Biological Motors

Wang
Protein motors convert chemical energy to mechanical work
while operating in an isothermal environment. The molecular
mechanism responsible for the energy transduction is still not
clear. The current experimental technologies permit measuring
forces and motions of a single protein motor to the precision of
piconewtons and nanometers. The main focus of this project is to
uncover the energy transduction mechanism of protein motors from
single molecule experimental data. First, the investigator
develops robust and effective tools for extracting the motor
force profile from the measured time series of motor position.
The motor force profile shows the motor driving force as a
function of motor position. It contains information about the
motor mechanism. The investigator also explores what else besides
the motor force profile can be extracted from the experimental
data. The theoretical and numerical tools developed are useful
for the studies of reaction diffusion processes in general. Then,
the investigator applies the tools developed to study the force
generation mechanism of kinesin and other protein motors.
Throughout the model building, new experiments are suggested to
experimental colleagues to resolve the unsettled issues.
Protein motors play a central role in many cell functions.
For example, myosin drives muscle contraction; kinesin drives
intracellular vesicle transportation and moves chromosomes during
mitosis. Understanding the operating principles of protein motors
is crucial to comprehending how biological systems function. It
is also important to bioengineering applications: controlling
protein motors artificially, incorporating protein motors into
artificial systems, and manufacturing nano-scale artificial
motors. This project seeks to reveal the operating principles of
protein motors from experimental results. In laboratories, the
time course of a single protein motor can be recorded. The
investigator eas develop theoretical tools to recover the motor
force profile from the recorded time courses. Then the force
generation mechanism is investigated.